Conference: Forum on Neuroscience and Nervous System Disorders

In recent years, there have been a number of remarkable advances in the neurosciences from recording techniques to artificial intelligence. This workshop/conference series organized by the National Academies brings together experts in these varied fields to exchange ideas and highlight their work, with an eye towards fostering collaborations and making the public more aware of these advances. This workshop/conference series represents a significant continuation and expansion on previous similar efforts that proved very successful.